REU: Undergraduate Research Training in Cell and Neurobiology using Marine Models

The Whitney Laboratory, a research institute of the University of Florida located on the Atlantic coast, will provide research training for undergraduate juniors and seniors in cell and neurobiology using marine animals as models. Eight faculty members will train twelve students throughout the year in modern, experimental techniques of anatomy, biochemistry, pharmacology and electrophysiology for which the facility is exceptionally well equipped. The students will live on the campus of the Laboratory, have access to all facilities, and will become full partners in the ongoing research efforts of their faculty advisors. Their independence will be encouraged, and they will receive full credit for their work in publications. In addition to their practical research training, the students' intellectual growth will be stimulated through participation in the Laboratory's regular seminars, and through a special series of research discussions provided by each member of the faculty.